Ring Spectra, DGAs and Derived Equivalences

Abstract

Award: DMS-0706877
Principal Investigator: Brooke E. Shipley

The PI proposes to study algebraic derived equivalences using
methods from homotopy theory. Specifically, the main project
proposed here is to consider when an equivalence between derived
categories can be realized by an underlying richly structured
equivalence. The PI and Dugger have shown that certain derived
equivalences of differential graded algebras (DGAs) can only be
realized by "topological equivalences" (involving tilting
spectra) which arise by considering DGAs in the broader context
of ring spectra. One goal of this project is to produce simple
invariants for detecting topological equivalences of DGAs.
Another goal is to extend the study of topological equivalences
to DG-categories. In on-going joint work with Dugger, the PI is
also investigating an exotic example of two derived equivalent
DGAs with no underlying structured equivalence.

The proposed research projects involve the interplay beween the
study of algebraic structures and topology, the study of shapes
or spaces. Algebraic topologists use algebraic structures to
describe and simplify topological phenomena. In a project on
realizing derived equivalences, the investigator hopes to use
techniques developed in algebraic topology to attack questions
which originate in algebra. The PI also plans to organize
conferences which will help to train graduate students as well as
disseminate results. In addition, the PI will continue to be
involved with several organizations which promote the
participation of women in science.